Microphysical Aspects of Cumulus Clouds

Within the visual identification of clouds, active mixing takes place between the cloudy air and the drier air of its environment. Recent observations of stratocumulus entrainment provide evidence that dry air mostly enters from the cloud top instead of from the lateral boundaries. At present, the entrainment mechanism is not fully understood. The entrained volume, with the cooler and drier air from above, dilutes the cloudy air, is negatively buoyant, and therefore descends within the cloud. Based on field observations and laboratory experiments, the entrained blob of air is envisioned to behave like a spherical vortex, with strong updraft in the middle of the blob and slower rising or descending air around the periphery. Under this grant, Profesor Telford will examine the dynamics of a turbulent spherical vortex and implement it in a cloud model. Since the entrainment processes may play a significant role in explaining the finite life time of cumulus clouds and in predicting various cloud drop size spectra observed around the world, Professor Telford's new theory, if successfully tested, will be a major contribution to cloud modelling.